CC* Compute: Triton Stratus

The University of California, San Diego, deploys Triton Stratus, an addition to its existing high performance computing system that allows campus researchers in many schools and departments to apply computational methods to their scientific research. Triton Stratus helps researchers advance their scientific aims by providing improved facilities for accessing emerging computing tools and scaling them to commercial cloud computing resources. Researchers, especially data scientists, are increasingly using tools such as Jupyter notebooks and RStudio to implement computational and data analysis functions and workflows. Jupyter notebooks provide a web-browser-based environment that permits the assembly of text, graphics, and computing functions into a living laboratory notebook, promoting research documentation and reproducibility. RStudio is another tool growing in popularity which provides a graphical environment for the R statistical language, widely used for data analysis. These tools are part of a general trend in research computing towards web-based and graphical interfaces, especially for attracting newer generations of researchers and data scientists. Triton Stratus runs JupyterHub server and RStudio server, addressing the interactive computing needs of scientists from various domain sciences.

The project delivers a productive research computing capability serving investigators in different scientific domains. Triton Stratus permits exploration of the emerging hybrid model of on-premise cluster computing resources coupled with commercial cloud computing services and will help answer questions such as the right balance of on-premise and cloud resources, best modes for scaling or bursting to cloud resources, and investigating new models of interactive research computing.